Active Galactic Nuclei, Quasars and Primeval Galaxies

ABSTRACT 9321441 Antonucci This research will involve studies of the nature of active galactic nuclei, quasars, and primeval galaxies. A new technique of spectropolarimetry will be used to obtain multidirectional views of active nuclei, and to capitalize on the results with certain observations at other wavelengths. There will be studies of radio-quiet quasars. Optical broadband and near-IR narrow-and broadband imaging will be used to test whether certain specially-selected very faint radio sources, unidentified on deep optical CCD images, could be at ultra-high redshifts (6{SYMBOL 163 \f "Symbol"} Z {SYMBOL 163 \f "Symbol"} 20). ***